NNA Track 1: Arctic impacts and reverberations of expanding global maritime trade routes

Navigating the New Arctic (NNA) is one of NSF's 10 Big Ideas. NNA projects address convergence scientific challenges in the rapidly changing Arctic. The Arctic research is needed to inform the economy, security and resilience of the Nation, the larger region and the globe. NNA empowers new research partnerships from local to international scales, diversifies the next generation of Arctic researchers, and integrates the co-production of knowledge. This award fulfills part of that aim.

As the Arctic thaws, new opportunities for resource exploration and the opening of new trade routes are expected. Increased passage of commodities through these routes and the related industrialization of the Arctic will introduce both opportunities and risks. These will require international agreements and rules of governance to maintain global stability and protect not only the commercial viability of the U.S. Arctic, but also the local peoples, environment, and natural resources. These new opportunities in the Arctic have impacts that reverberate across the globe. This project focuses on creating the mathematical, geophysical, computational, and social knowledge systems needed to understand how the changing Arctic impacts world trade flows and supply chains and to understand the risks to the Arctic's natural and social ecosystems and governance. The research supports U.S. national security interests, addresses global economic welfare, and facilitates greater resilience to new threats to Arctic communities while allowing for sustainable Arctic development and economic growth. Educational and outreach activities include the use of multimedia to disseminate findings to multiple audiences, both academic and non-academic. Also, the investigators plan to conduct dialogues with local stakeholders and conduct international workshops. Lastly, the project fosters the promotion and retention of women and underrepresented minorities in engineering, including native Alaskans.

This project develops state-of-the-art numerical models to enhance a high-resolution sea-ice forecasting system to predict Arctic sea ice thickness, ice ridge stability, storm surges, and risks posed to ships from icing. To support maritime infrastructure and improve coastal resilience, models based on arctic coastal dynamics at a variety of scales will also be developed. Creative approaches to improve learning and risk reduction behavior is incorporated into an assessment of risk management from the anticipated increase maritime traffic and related commercial activity. Indigenous approaches to information sharing will be combined with contemporary participatory data collection techniques to develop early warning signs for conflict. Co-production of knowledge with local communities will provide insights that can contribute to models of decision-making under conditions of uncertainty and these will be validated in workshops with local stakeholders. Finally, a variety of techniques ranging from stochastic and robust optimization to game theory are used to develop scalable, globally convergent algorithms. The investigators aim to generate a solutions method that can exploit risk predictions from ice physics, coastal dynamics, and social/governance insights to forecast expected cargo traffic through Arctic passageways over time, along with corresponding changes to traffic flows along alternative world trade routes and supply chains.